A Measurement of the Neutron Beta-Asymmetry Using Ultra-Cold Neutrons Produced in a Superthermal Solid Deuterium Source

This award will support a research effort aimed at measuring the
angular correlation between neutron spin and the emission direction
of the electron following beta decay of the neutron. The experiment
will utilize ultra-cold neutrons at the Los Alamos Neutron Science
Center. The goal is ultimately to provide an order-of-magnitude in
the precision to which this asymmetry is known. This measurment,
coupled with ongoing measurements of the neutron lifetime, can
provide sensitive tests of the electroweak standard model, as well
as improved values of the weak axial form factor of the nucleon.
The research effort contains an exceptionally diverse collection of
nuclear and atomic experimental techniques, at a scale where a Ph.D. student can have a substantial impact upon the course of the
research.